Conference: 56th Southeastern International Conference on Combinatorics, Graph Theory, and Computing

This award supports the 56th meeting of the Southeastern International Conference on Combinatorics, Graph Theory and Computing, to be held March 3-7, 2025 at Florida Atlantic University in Boca Raton. The conference has been held annually since 1970, in Baton Rouge, Louisiana and Boca Raton, Florida, bringing together a good mix of senior and junior researchers in various subareas of Combinatorics. The Fifty-sixth Conference will feature a series of instructional lectures by distinguished mathematical scientists that comprise a mix of established senior speakers, current "stars," and promising newcomers. The plenary speakers for this conference are Jack Edmonds, Jan Goedgebeur, Emily Heath, Donald Kreher, and Joel Spencer. Apart from plenary sessions there are sessions for contributed papers.

Specific topics that will be addressed at the conference through special sessions are algebraic combinatorics, graphs and matrices, and graph decompositions. The conference website can be found at https://www.math.fau.edu/combinatorics/index.php